Geometric Analysis of Mechanical Systems with Symmetry

Abstract

Proposal: DMS-9802106
Principal Investigator: Jerrold E. Marsden

This proposal intends to advance funamental research in reduction
theory for mechanical systems with symmetry in the following ways.
First, the theory of reduction by stages for group extensions will be
developed in both the Hamiltonian (cotangent, symplectic and Poisson
contexts) and the Lagrangian (variational context) points of view.
Second, the geometry and dynamics of Lagrangian reduction, especially
the Lagrange-Poincare equations and the Lagrange-d'Alembert-Poincare
equations will be investigated. In addition, the theory of geometric
phases for systems reduced using invariants and Kahler structures as
well as the use of blowing up techniques in singular reduction, and
multisymplectic geometry will be advanced.

The engineering analysis of mechanical systems such as robotic
locomotion and control devices makes use of the proposers mathematical
techniques in geometric mechanics. This mathematical foundation will
be of increased importance as the sophistication of such engineering
systems get more complex and exhibit more exotic dynamical behaviors
and require more delicate control strategies. The topics in this
proposal are critical enabling tools for such research and have proven
to be of great utility in a variety of systems such as satellite
stabilization and underwater vehicle dynamics. They are also being put
to fundamental use in numerical simulation packages for nonlinear
dynamical systems in mechanics, including collision, fluid, and
elastic systems as well as in satellite mission planning.